Presidential Young Investigator Award

This program is concerned with the study of optical nonlinearities in semiconductors. The objective is to achieve stronger optical nonlinearities that permit operation at lower light intensities. Defect-assisted optical nonlinearities will be studied. Prior work by this principal investigator employing quantum-confined excitons has pioneered in new resonant phenomena that can lead to significant enhancements of nonlinear interactions. Semi- insulating multilayer materials for understanding the screening mechanisms. Other nonequilibrium nonlinear optical phenomena such as the quenching of the photorefractive effect, optical metastability, and chaos will also be studied.